Photocycloadditions to Fullerenes

9400666 This grant from the Organic Dynamics Program supports the work of Professors Schuster, Wilson, and Courtney at New York University to study the scope and mechanism of photocycloadditions of fullerenes by enones. The studies focus on an analysis for steric and electronic influences of the fullerene functionalizations, sensitizing and quenching experiments to address the reaction mechanism, and analysis of the interaction between the reactants by photophysical probes. Characterization of fullerene excited states and triplet 1,4-biradicals is sought by photosensitized electron transfer reactions and time-resolved photoacoustic calorimetry. In this project Drs. Schuster, Wilson, and Courtney will conduct photocycloadditions of fullerenes by a variety of enones. Their research provides a novel route to functionalize fullerenes and addresses in detail all parameters that influence the photochemical reaction pathway. The significance of their studies on fullerenes is a profound expansion of the important photocycloadditions of olefins. This research will also provide much valued information on the photochemical and photophysical properties of fullerenes.